Introductory University Physics Project (IUPP) - Phase III

The Introductory University Physics Project (IUPP) is designed to develop and promote new models for the calculus-level introductory physics course. Key goals are a reduction in the number of topics covered and the integration of contemporary physics into the course content - all of which is organized around a coherent "story line." Phase III of IUPP is directed towards model development and classroom testing. Five models are being tested in classrooms of 2-year colleges, 4-year colleges, and universities that have expressed an interest to be test centers. As these models are tested, each is being evaluated by a group specifically organized for this purpose. When the formal activities of the project come to an end, the IUPP Steering Committee will publicize the results and encourage the use of the finished models in other institutions until commercial textbooks and other materials are finished and become available.